New Surface-based Strategies for the Development of Multiplex Sensors

In this project, Professor Kevin Moeller of the Department of Chemistry at Washington University in St. Louis is developing a new approach to building more effective point-of-care diagnostics. Point-of-care diagnostics play a critical role in the effective treatment of human disease by enabling physicians to make rapid, accurate decisions about the care they provide. For example, cheap, readily available glucose sensors help physicians and patients make immediate decisions about how diabetes related events are handled. Yet while such sensors for targeting specific biomarkers like glucose are wonderful, many point-of-care decisions require the detection of multiple biomarkers at the same time. This is a challenge that our current technology cannot meet. For this reason, the research being pursued with this award seeks to provide a fundamentally different strategy for detecting and monitoring a wide variety of biomarkers all at the same time. The project involves synthetic chemistry, the use of engineered electrode arrays, materials science, and molecular biology. As such, it provides students at all levels an outstanding opportunity to train in a multidisciplinary environment that highlights how new fundamental discoveries on the interface between traditional areas can solve problems of broad societal relevance.

While current state-of-the-art molecular diagnostics are outstanding for detecting and monitoring one biomarker at a time, they are less effective for the simultaneous recognition of multiple biomarkers. This is not a surprise since the multiplex detection of biomarkers requires the use of multiple molecular recognition elements that all give rise to a common chemical signal of roughly similar magnitude. One way to address this challenge would be to take advantage of soft, flexible, responsive polymer-brush based platform for supporting a variety of molecular recognition elements on a diagnostic device. In this scenario, the polymer itself would undergo a common structure switching motif for any binding event on its surface, a change that alleviates the need to the molecular recognition elements used to undergo a significant change upon binding and unifies the nature of the signal from each. A point of care diagnostic could be made using any combination of aptamers, antibodies, proteins, DNA-oligomers for duplex formation, etc. The only requirement would be for each molecular recognition element to selectively bind a specific biomarker of interest. The proposed project will examine this possibility in the context of polymer coated, high-density microelectrode arrays where every electrode in the array is individually addressable. The polymer coating on the array can be selectively modified by any electrode with a polymer brush and those brushes exclusively functionalized with any molecular recognition element of choice. The project being pursued is examining the use of the bush polymers as signaling elements, the nature of the base polymer that best supports the experiments, and types of molecular recognition element-based libraries that can be assembled and utilized.